Dissertation Research: Thoracic Specialization, Integration,and Locomotor Habit in the Lagomorpha

9321638 Bramble This is a comparative morphological study that addresses the functional relationships between thoracic design and locomotor behavior among highly cursorial, moderately cursorial, and non- cursorial members of the order Lagomorpha (hares, cottontails, and pikas). A novel approach will be take to understand the functional morphology of the thoracic complex: the mechanical role of the lungs and the interaction of lungs, heart, and ribs, during locomotion will be examined. A previously unexplored function of the lungs within the thorax will be modeled: pneumatic stabilization. This study will test the hypothesis that lungs, in addition to their role as gas exchangers, may act as pneumatic stabilizers of the chest walls and heart and that this mechanism will be positively correlated with running ability. A model will be developed which describes the integrated function of the mammalian thoracic complex during exercise based on the morphology, material properties, and mechanical interactions of its constituent elements. High speed cineradiographic analysis will be used in dynamic tests of both cadavers and live rabbits in order to describe the interactions of elements of the thoracic complex and to test essential predictions of the pneumatic stabilization model. ***